Engineering Foundation Conference on "Molecular Electronics"February 19-24, 1989, in Hawaii

This conference brings together people in various areas of "molecular engineering" who have well established reputations as leaders in their field. "Molecular engineering" has been harmed by over-inflated claims for "biochips"; this conference will help lay a secure scientific and engineering foundation for a promising field. Funding is recommended.